Supported Peroxo-Derivatives of Magnesium

This grant in the Inorganic, Bioinorganic, and Organometallic Chemistry Program supports research by Dr. James Burlitch to investigate the synthesis and reactivity of silica-supported magnesium hydroperoxides. A primary goal of the research is to characterize and develop the redox chemistry of the proposed -SiOMgOOH group. Characterization will include the use of Raman, infrared, and solid-state NMR spectroscopic techniques. Spectroscopic properties of the magnesium hydroperoxides will be compared with those of similar groups that are bound to surface-modified silica gels and to discrete model compounds. The reactivity of these solid-state oxidants will also be explored. Reactions will be carried out with model reductants and, once conditions are established for simple oxidations, studies will be extended to base-sensitive groups such as chlorinated hydrocarbons. This program will not only provide fundamental information in the area of oxidation chemistry, but may also lead to the development of a convenient, mild, and selective reagent for carrying out chemical transformations. Additionally, magnesium hydroperoxides have the potential to replace more dangerous and less environmentally friendly industrial oxidants.